Postdoctoral Research Fellowships in Chemistry

Dr. Michael J. Bronikowski has been awarded a Postdoctoral Fellowship in Chemistry. Dr. Brownikowski's doctoral degree was from Stanford University under the supervision of Professor Richard Zare. Dr. Brownikowski intends to continue research at Wisconsin with Professor Robert Hamers. Dr. Brownikowski's long range goal is to understand an manipulate matter on the atomic and molecular scale. He has had a strong background in physical chemistry through his thesis work involving the laser based study of reaction dynamics. In working with Professor Hamers, he will have the opportunity to learn the techniques of scanning tunneling microscopy. This will help him to implement his long term research plans. %%% The Postdoctoral Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D.'s and atttract them into meaningful careers in contemporary chemical research and teaching.